Interactivity Chemistry Experiments: A Multimedia Approach

The project involves developing, testing, producing, and distributing four instructional multimedia software modules for use in beginning college chemistry courses. Each module features four "Chemistry Workbench" experiments and a special patent pending navigation system. By use of point-and-click mouse techniques, students construct and test different chemistry experiments for topics in solutions, kinetics, acid- base equilibria, and electrochemistry. Modules which incorporate text, QuickTime color movies, PICT still images, voice narration, and animation sequence techniques are being developed for both the Macintosh II family and IBM PC/clone platforms using a color monitor. No special video boards, laserdiscs, or laserdisc players are required to view the digital motion color images. The modules are programmed using MacroMedia's "Director", SuperCard, and Swivel 3D software. The materials are being tested, evaluated and reviewed by students and chemistry faculty from various colleges and universities. Based upon the promise of a prototype, a major college chemistry textbook publisher is contributing to the project.